Numerical Investigations of Three and Two Dimensional Free Boundary Problems

The work is concerned with the theory of free surface flows. Here a free
surface refers to an interface between two fluids. The position of such a surface is not
known a priori and has to be found as part of the solution. This leads
to a highly nonlinear mathematical problem, for which the PI will
develop new numerical and analytical approaches.
The objective is to develop numerically and analytically theories for
three-dimensional nonlinear free surface flows and for two-dimensional
interfacial flows. Specifically:
(A) Derive efficient and accurate numerical approaches for
three-dimensional nonlinear free surface flows.
(B) Use these new schemes together with analytical techniques to further
the understanding of three-dimensional free surface flows. This
includes extending linear and weakly nonlinear theories to the
fully nonlinear regime and discovering the limiting configurations
of these flows.
(C) Check the validity of existing approximations in ship
hydrodynamics and improve them.
(D) Investigate the existence of new types of waves propagating
at the interface between two fluids of constant densities. These waves should
have properties intermediate between those of ``generalized solitary waves"
and those of ``classical fronts". Therefore it is appropriate to
describe them as ``generalized fronts".
Their existence is strongly suggested by previous work but they
have not been calculated explicitly.
(E) Calculate the generalized fronts and perform a numerical study of
their stability.

Free surface flows are common in many aspects of science and everyday life.
Examples are waves on a beach, bubbles rising in a glass of champagne,
melting ice, pouring flows from a container and sails blowing in the wind.
In these examples the free surface is the surface of the sea, the interface
between the gas and the champagne, the surface of the ice, the boundary
of the pouring flow and the surface of the sail. The PI will concentrate
on applications arising from fluid mechanics. However the methods developed are
general and have applications outside fluid mechanics and the PI proposes to
investigate them as well. The research will benefit applied mathematicians interested in nonlinear
free surface flows and applied scientists in need of accurate schemes
to solve three-dimensional free surface flows. The proposed application
to the nonlinear wave pattern generated by a ship is relevant to
ship hydrodynamics. The study of waves on sharp interfaces has
applications in oceanography. Such sharp interfaces form in oceans, lakes
and the atmosphere between adjacent masses of different density associated with
differences in temperature, salinity or amount of suspension. One of the
reasons for studying such sharp boundaries is that they appear at the surface as
frontal lines where dust, foam, timber and others accumulate.
Many of the problems proposed can be done in
collaboration with graduate students.